Symposium on Control of Mechanical Systems. To be Held June 19-20, 2006 at the University of California.

The Symposium on Control of Mechanical Systems (SCMS) will be held on June 19-20, 2006 at
the University of California, Berkeley in Honor of Professor Masayoshi Tomizuka. The
conference, chaired by Professor Roberto Horowitz (University of California, Berkeley)
will bring leading researchers and practitioners from academics, industry, and government
agencies to interact on the latest advances in modeling and control of mechanical systems.
SCMS will bring together leading researchers in the field to assess the current state of
research and areas for future research and application. Participation is open and the
Symposium has been announced in important conferences and in relevant electronic media.
SCMS draws upon many disciplines, including system theory, control theory, computer and
communication networks, signal processing, and a wide array of application areas. A total
of approximately 120 attendees are expected to participate in this conference, of which 60
will be students. An amount of $20,000 is requested to support this conference. The funds
will be used to partially pay for the travel expenses of a number of graduate and
undergraduate students that will be selected from among the students that attend this
symposium and apply for travel support and for student dinning expenses. The remaining
funds will be used to partially support the travel expenses of some of the invited
speakers, who have retired and do not have other sources to support their travel.
Intellectual Merit: The purpose of this workshop is to bring leading researchers and
practitioners from academics, industry, and government agencies to interact on the latest
advances in modeling and control of mechanical systems. The primary goal of this proposal
is to seek financial support from NSF to invite approximately 60 students to the symposium
and expose them to current advances in the control of mechanical systems and its
applications. The invited students will present posters or orally in the workshop. We
also seek financial support to fund some of the invited speakers who have retired and do
not have other sources to support their travel. A book will be published, which will
contain the symposium memories and will include a series of tutorial and survey chapters,
written by many of the symposium presenters, in diverse subjects of mechanical systems
control, including adaptive, repetitive, nonlinear and optimal control ad estimation, as
well as state of the art applications.
Travel support for student attendees will be advertised nationally. Women, minorities, and
disabled students will be especially encouraged to apply.
Broader Impacts: Undergraduate and graduate students who attend the conference, present
papers, and participate in student-oriented activities are likely to pursue careers in the
field of control theory and its applications. The book that will be published as the
memories of this symposium will be a valuable reference and learning tool for many
undergraduate and graduate students, who may be pursuing or considering entering the field
of mechanical systems control.